Simulated Asteroid Belt Population Model

AST 0073837
Tedesco

Dr. Tedesco will develop a three-dimensional model of the asteroid belt consisting of orbital elements, diameters, and albedos for all asteroids that can become brighter than apparent visual magnitude 25. This model will then be improved using extant and contemporaneous observations at visual through infrared wavelengths. The improved model will be used to refine our knowledge of the current asteroid size-frequency distribution and to aid in planning future observations at those wavelengths that address this issue. Measured albedos for approximately 2,400 asteroids will be used to estimate the albedos and diameters for real asteroids lacking them and to generate albedos and absolute magnitudes for the statistical asteroids. This work is funded through the Planetary Astronomy Program in the Division of Astronomical Sciences.
***